Metabolic Regulation of Gene Expression During Cereal Seedling Development

9408369 Rodriquiz This research deals with the Metabolite Signal Model which provides a new perspective on source/sink relations during cereal seedling development by integrating gibberellic acid (GA) regulation into a larger regulatory circuit. Metabolic regulation of gene expression, in which metabolites effect changes in gene expression, regulates genes encoding at least three enzymes of carbohydrate metabolism in cereal seedlings. Two alpha-amylase genes, one expressed in scutellum and the other expressed in the aleurone (source), are repressed by sugar or a metabolite derived from sugar. Synthesis or release of GA from the embryo (sink) may also be controlled by metabolic regulation. If this is the case, then the metabolic regulatory signal and the GA regulatory signal may form a regulatory feedback circuit controlling the process of seedling development. Having the complete set of rice alpha-amylase gene clones enables Dr. Rodriquiz and his colleagues to study the regulation of this gene family at the gene-specific level. The metabolically regulated alpha-amylase genes RAmy3D and RAmy3E, which are the main focus of this research, are distinct from the majority of alpha- amylase genes cloned from other cereals. There is evidence that genes homologous to RAmy3D are present in other cereal species, so studies with rice may help us to understand seedling development in other species. The switch from the early isozyme RAmy3D to a set of later isozymes may be part of a developmental and physiological transition that prepares the germinating seed for the next stage of development, seedling elongation. The relatively unique ability of rice seeds to germinate under anoxic conditions and the availability of a GA-deficient dwarf mutant of rice provide two experimental systems which will facilitate this study. ***